STTR Phase I: High-Sensitivity Flexible Quantum Dots/Graphene X-Ray Detectors and Imaging Systems

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is a novel sensitive x-ray imaging platform based on a quantum approach to photo-detection. This project will leverage recent advancements in Quantum Dots/Graphene technology to demonstrate its suitability and superior performance for x-ray-based imaging medical capital equipment. This novel technological approach aims to provide an X-ray diagnostic imaging platform with superior performance and lower potential price points than semiconductor detector paradigms. The commercial impact is a novel detector array platform for the $16 billion annual x-ray imaging market, focusing on the $6.9 annual computed tomography (CT) scanner subset of the market.

This Small Business Innovation Research (SBIR) Phase I project aims to develop a functional prototype for a novel Quantum Dots (QD)/graphene nanohybrid x-ray array detection platform for use in medical diagnostic capital equipment. This initiative aims to design and quantify the critical attributes of a novel quantum sensor platform for x-ray capture, down-conversion, and detection of down-converted low-energy photons. During this first phase, experimental tests will be completed. The results will be used to design and develop a prototype detector array with a QD-layer design onto rigid and flexible substrates for scalability onto large X-ray imaging systems. The completed prototype system will then be tested and validated for performance versus existing platforms. This Phase 1 project will quantitatively benchmark several critical attributes (cost, sensitivity, efficiency, preliminary safety) for a novel x-ray imaging nanohybrid platform versus current hybrids for future commercial integration.